Examine the Use of Effectiveness of Technology in Teaching Science and Mathematics

This planning proposal seeks to enhance the use of technology in the science and mathematics classroom. More specifically, the project seeks to do the following: to examine how and which technological innovations are being used in the teaching of science and mathematics; to examine how technology is being used to link scientists, science and mathematics educators, and other professionals together; to determine what has worked, how well and why; and to explore new advances in technology that have implications for education. As a result of the findings, a teacher enhancement program will be designed for grades K-12 for effective use of technology in the teaching of science and mathematics.